Unifying Mirror Symmetry

Abstract

Award: DMS-0072504
Principal Investigator: Eric Zaslow

Zaslow proposes research directed towards a unified understanding
of mirror symmetry. Current ideas -- including ``classical''
mirror symmetry; Kontsevich's conjecture; the work of Vafa; and
the conjecture of Strominger, Yau, and Zaslow -- are only loosely
connected and involve both perturbative and non-perturbative
string reasoning. An understanding of how non-perturbative
string theory relates to the classical mirror symmetry picture
and Gromov-Witten invariants will be an important step towards
unification. Five projects are proposed towards achieving this
goal: 1) Developing a mathematical formulation of the new
invariants obtained by Gopakumar and Vafa from BPS state
counting. 2) Understanding the multiple-cover formulas which
yield integers from higher-genus Gromov-Witten invariants. 3)
Resolving the holomorphic ambiguity by determining it from the
structure of singularities of Calabi-Yau moduli space. 4)
Developing a physical understanding of Kontsevich's enlargement
of Calabi-Yau moduli space to include A-infinity structures. 5)
Defining a geometric Fourier-Mukai-like functor relating
special-Lagrangian cycles of one manifold to Hermitian-Yang-Mills
connections on bundles over the mirror. This functor could lead
to a geometric proof of Kontsevich's formulation of mirror
symmetry. All these projects aim to unify our still disparate
approaches to mirror symmetry.

This project is directed towards unifying our mathematical and
physical understanding of the phenomenon of mirror symmetry,
discovered by theoretical physicists working in string theory.
String theory is a proposed physical theory with the promise of
incorporating Einstein's understanding of space and gravity into
the quantum theory. Mirror symmetry is a duality symmetry in
string theory, whereby two very different physical theories are
actually equivalent. When one of the theories is easily
computable and the other hard, this leads to predictions of
answers to difficult calculations. From the mathematical point
of view, this can lead to conjectures relating parallel
structures -- the structures involved in describing the
different, but equivalent, mathematical models of physical
theories. The relationships unearthed by mirror symmetry are
deep and novel. A unified understanding of them may join not
only fields of research but different disciplines -- math and
physics -- as well. This award is partially funded by the
program in Mathematical Physics of the Division of Physics.